Elementary, Secondary, and Informal Education: Greek Odyssey

MacGillivray Freeman Films is producing and distributing "Greek Odyssey," a large-format film presenting archaeology as a sophisticated, precise science that utilizes highly advanced technologies to reconstruct the past. The film will examine research in Athens, the Greek islands and beneath the Aegean Sea where archaeologists, geophysicists and conservationists collaborate to solve and record the mysteries of ancient civilizations. Audiences will discover the process and importance of scientific research to our understanding of Greece's past and its extraordinary influence on our world today. Outreach will include a Museum Resource Guide, Family Fun Sheet, Teacher's Guide, Website and a Scientist Speaker Series.

Greg MacGillivray will serve as Co-Producer/Director/Director of Photography, Alec Lorimore will be Co-Producer, and Stephen Judson will be the film editor. The Lead Science Advisor is Mark Rose, a member of the Archaeological Institute of America and Managing Editor of Archaeology magazine. Science advisors include: George Bass, Institute of Nautical Archaeology, Texas A & M University; Sandy MacGillivray, Co-Director of Palaikastro excavations on Crete; and Floyd McCoy, Department of Geology and Geophysics, University of Hawaii.